2012 Summer Bioengineering Conference, Puerto Rico during June 20-23, 2012

1219397
Elliott

The Bioengineering Division (BED) of the American Society of Mechanical Engineers hosts the annual Summer Bioengineering Conference (SBC). The 2012 SBC, to be held June 20-23 at the el Conquistador Resort in Fajardo, Puerto Rico, will be the 14th installment of this conference. The budget request of $25,000 to NSF is to aid in reducing student registration fees and for educational activities including an internationally renowned plenary lecturer, educational workshops, and student-focused grand challenges. The conference format will be six parallel sessions of oral presentations. All technical presentations will be two-page extended abstracts and compiled in a CD format, distributed to all registrants. The primary purpose of this conference is to promote state-of-the-art research, collaboration, and scientific discourse in the broad field of bioengineering with a focus on cutting edge biomechanics encompassing molecular to tissue and organism-level approaches. This conference highlights and encourages student participation to advance the education and career aspirations of these future leaders of bioengineering.

Intellectual Merit: The SBC is an extremely high quality scientific and intellectually stimulating interdisciplinary meeting. It is the premiere meeting for bioengineering with a focus on biomechanical engineering. The theme of this year's conference is The Art and Science of Imaging as it applies to biomechanical engineering. Medical imaging is fast becoming an essential tool, both for making fundamental discoveries and for translating them to routine clinical use. This year, for the first time, SBC will highlight Imaging as a way to educate and inspire our attendees to consider the use and integration of imaging in the biomechanical engineering disciplines. An outstanding plenary lecture will be given by Dr. Mark Henkelman (University of Toronto's Hospital for Sick Children). Dr. Henkelman is an internationally recognized pioneer in magnetic resonance flow and motion imaging. Dr. Henkelman's lecture will be designed to introduce our audience to the state of the art in human and small animal imaging and its applications to various areas of biomechanical engineering research. Six workshops will be presented: 4D Phase Contrast MRI for Hemodynamics, Solid Mechanics over Hierarchical Scales by Noninvasive Imaging, Bringing Assistive Devices to Market, Tips for Tenure in Bioengineering, Teaching Cell & Tissue Engineering, and Biotransport Education. We will also have three Challenges: Undergraduate Design, Grand Challenge in Predicting Knee Loads, and Computational Fluid Dynamics Challenge. Challenge sessions highlight student achievements in engineering design and modeling and rapidly advance the field through simultaneously encouraging competition and collaboration.

Broader Impact: In addition to the direct impact this conference will have on the bioengineering community, it will serve an important cross-fertilization role. It is expected to have bioengineers, engineers from other disciplines, cell and molecular biologists, biochemists, biophysicists, and other scientists participating. In that manner, this conference will have a much broader impact than if it were to be attended by just the biomechanics community. Technical content of the meeting will be available to multiple societies and the public at large via a CD and the conference web site. Importantly, we expect that more than 50% of the attendees will be students and postdoctoral researchers. This will provide a broad impact for the current times as well as for the future, as these students will benefit by participation in the meeting and through the material presented by the plenary speakers, workshops, and challenges.